Planning Meeting to establish NSF Center for Design and Analog Digital Integrated Circuits (CDADIC) at Tuskegee University

Abstract EEC-9616808 Dogan The Industry/University Cooperative Research Center for Design of Analog-Digital Integrated Circuits (CDADIC) is a multi-university consortia composed of Washington State University, University of Washington, Oregon State University and the State University of New York - Stoneybrook. This planning award is funding an industry-university meeting to determine the economic viability of establishing a research site for CDADIC at Tuskegee University. Establishing a research site at Tuskegee University will not only expand the CDADIC research agenda but it will provide an effective industry-university interaction mechanism for minority students.